SCC-IRG Track 1: Serving Households in AReas with food Insecurity with a Network for Good: SHARING

This project seeks to address hunger relief in the US by maximizing equitable access to safe food, while considering the food preferences of food-insecure households, and simultaneously addressing redistribution of usable food that would otherwise be wasted. In the US, 10.5% of the households were food insecure in 2019, and that number increased by 29% in 2020 with the spread of COVID-19, according to the Feeding America Covid-19 impact assessment. Yet, it is estimated that 30–40% of food supply is wasted in the US. Working with two food banks in North Carolina and one in Alabama, each serving a range of counties—together with their associated networks of food-insecure households, food-secure households, other nonprofit organizations, and local businesses such as growers, supermarkets, restaurants, and other businesses in the service regions—the project team of academic and community partners will co-develop a community-based socially intelligent nonprofit food rescue and distribution infrastructure and platform to use community resources to equitably serve food-insecure households.

This project unites three aims to develop a socially intelligent nonprofit food rescue and distribution infrastructure to equitably serve food-insecure households by continually learning their preferences with feedback to upstream stages of the supply chain. Aim 1, Smart Sociotechnical Information Capturer and Predictor: Understand the behavior of donors, beneficiaries, and volunteers by creating a socially intelligent infrastructure that records data in real-time and learns evolving stakeholders’ and end users’ needs, preferences, and utilization over time. Aim 2, Tactical Supply Chain Planner: Design and optimize the community food sharing network in response to stakeholder behaviors by constructing a technology and data-driven supply chain framework that adapts to evolving stakeholder behaviors to best serve the hunger needs of food-insecure households within the community. Aim 3, Real-Time, Logistics Operations Optimizer: Satisfy beneficiary needs through communal self-renewal by connecting food-insecure households to community-based supply options in real-time, and optimizing real-time pickup and delivery logistics while adhering to food safety time windows. The proposed infrastructure will facilitate more effective food distribution aimed at reducing hunger while simultaneously enhancing sustainability.